Communication and Control of Integrated Manufacturing Systems

This award addresses several key research problems in an Integrated Multi-Robot System (IMRS). The principal investigator will develop IMRS communications architectures, particularly emphasizing the real-time performance and interactions among industrial processes; develop rigorous, objective methods for the assignment and scheduling of control tasks among the processors in the IMRS; and investigate the fault-tolerance of the IMRS by pairing tasks. This includes determining the information exchanged between paired tasks, the frequency of these exchanges, determining the required health management tasks, and providing graceful degradation of the system as processors and devices fail.